Symbolic Software for Conservation Laws of Multi-Dimensional Continuous and Discrete Nonlinear Equations

Symbolic Software for Conservation Laws of Multi-Dimensional
Continuous and Discrete Nonlinear Equations

Willy Hereman and Michael Colagrosso

Abstract

The aim of the project is to create mathematical methods, algorithms,
and symbolic software for the computation of conservation laws of nonlinear
models from the applied sciences and engineering.
Specifically, the research concerns nonlinear partial differential equations
in multi-dimensions, nonlinear differential-difference equations and
fully-discretized lattices.
Using differential-geometric tools and techniques from the calculus of
variations, the algorithms are straightforward to implement in computer
algebra languages and the software will be easy to use by non-experts.
Potential users are researchers concerned with conserved quantities and
integrability of nonlinear equations that arise in soliton theory,
dynamical systems, control theory, and mathematical physics.
In particular, the software will gain insight in reaction-diffusion
models, population and molecular dynamics, nonlinear networks, and
chemical reactions.
In addition to its use in research, the software will serve as an educational
tool for courses in nonlinear wave phenomena in fluid dynamics,
plasma physics, electrical circuits, quantum chemistry, bio-genetics,
and nonlinear optics.

An essential part of the project is the development of homotopy operator
methods to handle the needed integration and summation by parts on jet
spaces.
In view of their versatile applicability, fast algorithms and stand-alone
packages will be developed for continuous and discrete homotopy operators.
Adhering to a calculus-based approach, the generalization of the algorithms
to integro-differential equations and delay differential equations will be
pursued.
New mathematical techniques are expected to come from these explorations in
uncharted terrain.

The research fosters collaboration between mathematicians and computer
scientists, creating novel mathematics and quality software, as well as
producing students with good software engineering skills.
The software development process, including design, development, and testing,
combines the strengths of undergraduates, graduate students, and faculty.
The comprehensive software packages are envisioned to have a wide impact
with pure and applied mathematicians, physicists, engineers, and others
interested in the analysis of nonlinear equations, enhancing the
productivity of researchers in several domains.